SBIR Phase II: International Blockchain-Backed Financial Transactions in Low-Bandwidth Environments

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to facilitate access to banking services through use of blockchain/distributed ledger technology, even with limited internet access. The proposed technology can make transfers more affordable and convenient. Digitizing transfers increases speed, reduces exchange and transfer fees, and lowers the risk associated with carrying cash. This proposed technology enables access for the 13 million people currently underserved by the financial industry. If successful, this technology could improve efficiency and resilience of transfers worldwide. The project's anticipated results include 60% cost reduction compared to traditional transfer systems, <30 second transaction completions, and an anticipated 0% fraud rate.

This SBIR Phase II project proposes to research and develop a blockchain-based solution to store, send, and make transfers without a smartphone or internet. The proposed core technology includes a blockchain back-end that powers an Unstructured Supplementary Service Data (USSD) front-end, allowing mobile devices to securely send and receive data without an internet connection. This project’s intellectual merit lies in (1) developing the first-of-its-kind blockchain-based system for international transactions with access even in low bandwidth/no bandwidth environments; (2) creating a digital identity protocol that is distributed, accessible offline, and usable by any entity without exposing personally identifiable information (PII); and (3) developing the first machine learning-based microlending algorithms using offline behaviors to predict, prompt, and automate actions.